Mathematical Sciences: The Geometry of Transformations of Dynamical Systems

The principal investigator will devote her time on this project to further understanding the role of algebraic machinery in Control Theory. The purpose of this planning grant is to conduct research and to retrain, in order that the principal investigator became an active participant in the Systems Theory community. Collaboration with Professors Hinrichsen and Grunewald will be actively developed.